Improving Science Education in the University of Wisconsin Centers

9353930 Alexander This project establishes a coalition between science faculty at the University of Wisconsin Centers, which are two-year institutions, and other University of Wisconsin System institutions. An interdisciplinary workshop on environmental science will be held June 6-10, 1994, at UW-Green Bay, with academic year follow-up activities. Participants will include science faculty from the UW Centers and the four-year campuses. The goals are to help participants learn of advances in their disciplines as they relate to environmental science, incorporate these advances into their classes, and plan inter- institutional research. ***